Zeta Functions and L-Functions Over Finite Fields

9622895 Wan This grant supports the work of Professor D. Wan to work in arithmetic geometry specifically problems in the arithmetic of function fields. He intends to study the L-function attached to a continuos representations of the arithmetical fundamental group of an affine algebraic variety defined over a finite field of characteristic p. He intends to study rationality, possible meromorphic continuations, entireness and the Riemann hypothesis for these L-functions. This project falls into the general area of arithmetic geometry - a subject that blends two of the oldest areas of mathematics: number theory and geometry. This combination has proved extraordinarily fruitful - having recently solved problems that withstood generations. Among its many consequences are new error correcting codes. Such codes are essential for both modern computers (hard disks) and compact disks.